Mathematical Sciences Research Equipment 1990

This is a grant under the Scientific Computing Research Equipment for the Mathematical Sciences program of the Division of Mathematical Sciences of the National Sciences Foundation. This program supports the purchase of special purpose computing equipment dedicated to the conduct of research in the mathematical sciences. This equipment is required for several research projects and would be difficult to justify for one project alone. Support from the National Science Foundation is coupled with discounts and contributions from manufacturers and with substantial cost-sharing from the institutions submitting the proposal. This program is an example of academic, corporate, and government cooperation in the support of the basic research in the mathematical sciences. This equipment will be used to support five research projects in the Department of Statistics of Harvard University: statistical issues in microbiology, director Herman Chernoff; methods for the analysis of longitudinal data, director Arthur Dempster; graphical comparisons of hazards, director Kjell Doksum; applied multiparameter inferential methods and computer graphics, director Carl Morris; applied Bayesian inference via simulation, director Donald Rubin.